Chemically Modified Anodes for Electrosynthesis

Compared to cathode materials for electrosynthesis, there are much fewer suitable anode materials which are at the same time stable, inexpensive, electrocatalytic for the process, and electrically conductive. This research involves the preparation and characterization of chemically modified carbons, containing a substantial amount of unique functionality covalently attached to the carbon. Modified carbon anodes will be evaluated for regeneration of ceric ion which is useful in oxidation of aromatics to commercially valuable products. Also to be evaluated is preparation and use of tailor-made "cerium anodes" for in-cell electroorganic synthesis.